The Copernican Revolution From Below

The Copernican Revolution From Below
This project seeks to turn upside down the traditional account of the "Copernican
Revolution" by examining the work of a wide variety of mathematical practitioners from
across Europe that has remained essentially unstudied by previous historians. These
printers, physicians, surgeons, astrologers, instrument makers, city officials, and "lovers
of astronomy" (as they called themselves) produced hundreds of editions of annual
calendars, prognostications and practica in the century following Copernicus. To prepare
these periodica, the authors had to decide whether to compute planetary positions from
the medieval Alfonsine Tables or from more recent tables derived from Copernicus,
Tycho Brahe, or Kepler. Many of them explicitly discussed the choices they faced.
From this vantage point, the Copernican Revolution becomes less a matter of natural
philosophy, religion or realism debated at universities and more a matter of numeracy,
empirical evaluation of astronomical predictions, medical practice, clock-making and the
competitive business of printing in the everyday bustle of towns from London to Vienna.
Intellectual Merit
With its approach to mathematical astronomy from below, the monograph
resulting from this project will provide yet another story of how ordinary people helped
make the Scientific Revolution of the sixteenth and seventeenth centuries. Extending the
work of historians like William Eamon, Harold Cook, Paula Findlen, Pamela Smith,
William Newman and Mario Biagioli, my book will investigate the lives of more than
400 rather marginal practitioners of astronomy who gained authority and legitimacy not
by their elite (Latin) learning, place at courts or noble birth but rather by their
computational skills and the perceived reliability of their annual prognostications. This
project will thus expand our view of the origins of modern science by considering users
as well as makers of astronomical knowledge, and by viewing the content of astronomical
knowledge as comprised by computational practice as well as theory.
Broader Impacts
By writing a monograph of modest length, in non-technical language, the PI
hopes to produce a book that will appeal not only to historians of science but also to the
general public and (as a textbook) to graduate and undergraduate students. And by taking
a perspective from below, the PI hopes to foster an awareness of science as an activity in
which both lay and learned people have shaped the content, values and social legitimacy
of the enterprise.